U.S.-Austria Cooperative Research: Fracture Mechanics Case Studies of Concrete Dams

This award supports Dr. Anthony R. Ingraffea of Cornell University in a research collaboration with Dr. Hans P. Rossmanith of the Institute of Mechanics of the Technical University of Vienna. The objectives of their cooperative research are to further the understanding of the process of cracking in large concrete dams, to create a simulation capability to diagnose the cause of cracking and evaluate repair procedures, and to incorporate the resulting new knowledge and experience into improved design procedures for new dam construction. Austria is among the world leaders in the construction of concrete dams. Case studies of a number of Austrian and U.S. dams currently under repair or construction will be performed with the cooperation of the owners or operators of the dams. Simulations will be based on advanced structural mechanics (including fracture mechanics, damage analysis, and failure analysis), numerical modelling methods (including finite and boundary elements modelling), and state-of-the-art interactive computer graphics. Special emphasis will be given to the problems of crack avoidance and control by design, and technically sound and cost-effective repair of cracked dams. Cracking in concrete dams is a problem of considerable importance. The results obtained from these case studies should guide and support designers, builders, operators, and repair personnel of large concrete dams. The cooperative nature of the project will hasten the development of simulation capability, broaden the data and knowledge bases on both sides, engender better cooperation from owners and operators of the dams, and transfer practical failure analysis expertise to the U.S. and 3-D simulation expertise to Austria.